Feasibility Study: Coring Last Interglacial Deposits, Bristol Bay, Alaska

Abstract ATM-9416296 Kaufman, Darrell Utah State University Title: SGER: Feasibility Study: Coring Last Interglacial Deposits, Bristol Bay, Alaska The aim of this research is to test the feasibility of obtaining a long (ca. 40 M) sediment core from the northeastern coast of Bristol Bay, a tidal estuary in southwestern Alaska. The service of a drill rig designed for coring, but untested for paleoenvironmental and geochronological applications will be contracted for this effort. Recovered core material will be analyzed for paleomagnetic, tephrostratigraphic, and physical properties. The core site near Dillingham is adjacent to well-studied coastal- bluff exposures, where the age of sediments appears to be exceptionally well constrained. By extending the stratigraphic record into the subsurface, the core will be used to test the age assignment. Most importantly, sediments dating to the last interglaciation should be found at relatively shallow depth and the Old Crow tephra (ca. 140 ka) below that. Well-dated stratigraphic records of the last interglaciation are rare in northern North America, yet are critically needed for testing climate models under warmer-than-present conditions and for comparison with other long- term paleoclimate records, including the new Greenland ice cores.